Materials Research Science and Engineering Center

The Materials Research Science and Engineering Center (MRSEC) at the University of Alabama features a multidisciplinary research program built on a solid foundation provided by the existing Center for Materials for Information Technology (MINT). The MRSEC supports interactive research through two interdisciplinary research groups. The group which focuses on the relationship of microstructure and magnetic properties carries out fundamental measurements on materials systems which have potential applications in future magnetic recording systems. Of particular interest are nitrogenated iron based alloys, high magnetization iron nitride films and giant magnetoresistance thin films. The group which concentrates on the preparation and dispersion of magnetic nanoparticles is directed to develop new synthetic methods for the preparation of magnetic particles and to gain a fundamental understanding of magnetic dispersions. The MRSEC is housed in the same research building where the MINT Center is located and shares a number of central facilities with the existing center. Collaboration with industry is extensive and well established by the MINT Center. The MRSEC provides seed funding for exploratory research and emphasizes minority recruitment and interdisciplinary training. A major component of the educational goals is to attract, retain and train more students in a technologically important area where, as demonstrated by the success of graduates, excellent jobs are available. The close association with the Historically Back Colleges and Universities (HBCU) in the South is utilized to enhance current outreach programs that support minority students and faculty. The center currently supports 7 faculty, 5 post-doctoral assistants, and 5 graduate students. The MRSEC is directed by Professor William D oyle.